Chicxulub Scientific Drilling Project: Age and Environmental Consequences of the Chicxulub Impact Event

0207407
Keller

The International Continental Scientific Drilling Program (ICDP) is funding the drilling of a 2km hole in the Chicxulub impact crater on the Yucatan Peninsula in Mexico. NSF is funding US investigators to analyze core samples from the Chicxulub Scientific Drilling Project (CSDP). The Chicxulub crater is one of the world's largest impact craters and has been linked to the mass extnction event at the Cretaceous - Tertiary (K/T) boundary ~65 million years ago. As part of the CSDP Science Team, the Principal Investigators will carry out a collaborative and multidisciplinary effort that addresses three main topics: 1) the age of the Chicxulub impact, 2) evidence of multiple impacts, and 3) environmental and biotic consequences of the impact(s). The research falls into two categories. The first is an investigation of CSDP core samples by the PI to determine the age, biostratigraphy, faunal turnover, and paleoenvironment of deposition based on planktic and benthic foraminifera, and the correlation of this data with sections throughout Central America. The second is a collaborative research effort with other team members involving analyses of CSDP core samples for impact glass, sedimentology, geochemistry, and mineralogy.
***